Engineering Research Equipment Grant: Retrofitting a 2,000 Kips Compression Machine

Support is provided for renovating a high capacity (2,000 Kips) Baldwin compression machine so that it will serve a multi-user high pressure temperature research apparatus. Typical planned projects requiring the specific research equipment include: experimental and numerical investigation of the compaction of metal and ceramic powers for forming structural elements over wide ranges of pressure and temperature, and fundamental investigations of engineering properties of high strength cementitious materials. Other applications of this research equipment include the investigation of problems associated with geological materials and rock mechanics. To make effective use of the test machine as a research tool, the machine would be retrofitted with a new hydraulic power supply, an electronic closed-loop control unit, and a pressure die module of about 6-in. diameter in the l0-50 Ksi and l,200 degrees C ranges of pressure and temperature for consolidating powders into structural elements.